U.S.-France Cooperative Research: Synchrotron Radiation Compton Scattering Studies

This award will support collaborative research between Prof. Arthur Bienenstock of the Stanford Synchrotron Radiation Laboratory (SSRL), and Drs. Genevieve Loupias and Jerome Tarbes of the Laboratoire de Mineralogie-Crystallographie of the Universite de Paris, in the area of high-intensity X-ray Compton scattering. The objective of this work is to utilize the high-intensity X-rays emitted by synchrotron radiation from the beam lines on the PEP storage ring at SSRL to perform very high resolution electron momentum density measurements using Compton scattering. Achievement of this objective requires design and construction of an energy-dispersive detection apparatus optimized for detection at energies near that of the scattered X-rays; calibration of this apparatus by measurements on previously studied materials at higher resolution than has been previously possible; and, finally, the study of complex systems such as the transition metals above and below the Curie temperature. The French collaborators have considerable experience with high-resolution Compton scattering, which should assure that the SSRL facilities are equipped for these measurements in a relatively short time. Following the installation of the detectors, the U.S. and French groups will study different materials: the U.S. group will investigate elemental semiconductors and metals, while the French group will study both natural and artificial layered structures. The two groups will jointly analyze the results obtained, and although measurements will be made at SSRL, some data analysis will take place in France. The research will advance the technique of Compton scattering itself, and will provide a resource for high-resolution scattering measurements to the scientific community at large.